A Synthesis of Geochemical Results from the Southeast Indian Ridge

Over the last decade and during four separate field programs, the PI has collected a wide variety of basalt samples from the Southeast Indian Ridge (SEIR) between -80'E and -135'E. Overall, there are -2000 samples comprising -300 glass groups from >150 localities. The PI proposes to consolidate and synthesize these results and to interpret the explained observations, which include chemical variations related to regional depth variations of over 2 km. This is a very interesting area in terms of the observed variations in depth, ridge morphology and mantle domains. In addition to the synthesis, the PI requests some support to carry out analyses of trace elements in minerals and their melt inclusions using ELA-ICPMS (Excimer laser ablation inductively coupled plasma mass spectrometry).